Multiwavelength Studies and Numerical Modelling of Radio Galaxies and Galaxy Clusters

9317596 Burns New X-ray, optical, and now radio observations have demonstrated that clusters of galaxies are not simple related structures as once envisioned, but rather dynamically evolving systems that have undergone dramatic cluster/subcluster merging. This research will support a multiwavelength observational study of clusters and cluster merging coupled with sophisticated hydrodynamical and N-body numerical modelling, centered around radio galaxies in clusters. It will investigate how mergers influence the creation and evolution of wide-angle tailed radio sources, cluster radio halos, and steep-spectrum radio galaxies. Numerical hydro/N-body simulations will be used to explore the evolution of the gravitational potential well and the gas in clusters during merging. Magnetohydrodynamic simulations will be used to model the cluster gaseous environment including nonspherical cooling inflows and thermal instabilities, and the propagation of radio jets through cluster atmospheres.